University of Minnesota High School Summer Science Research Program

The College of Biological Sciences, University of Minnesota, proposes an eight week High School Summer Science Research Program. The program is designed for twenty high ability, high achieving students, grade 11. Each student will select a faculty mentor and the majority of the student experience will occur in the process of pursuing a research topic within the problem area being investigated by that research team. However, all students will attend seminars dealing with scientific methodology, ethical issues in science, philosophy of science, and careers in science. In addition, they will be participating in a program of lab safety. The students are expected to assume responsibility for a full work week of forty hours, accepting the demands placed on a regular member of a research laboratory team. The academic load is rigorous with considerable background reading required by the individual mentors. Evidence of progress in the lab issurveyed in the student seminar at the midpoint of the program and the final results of the project is displayed and discussed at an end-of-term symposium.